2008 Frontiers of Engineering Symposia (U.S., Japan-America, and German-American)

This award partially supports a series of three national and international Frontiers of Engineering (FOE) Symposia by the National Academy of Engineering: U.S. FOE (September 18-20, 2008, in Albuquerque, NM), German-American FOE (April 25-27, 2008, in Irvine, CA), and Japan-America FOE (November 17-19, 2008, in Tsukuba, Japan).

Each symposium focuses on four topical areas. Topics for 2008 include cognitive engineering, natural language processing, emerging nanoelectric devices, biotechnology and healthcare, drug delivery systems, nanotechnology for medical therapies, understanding and countering the proliferation of weapons of mass destruction, micromanufacturing/microprocessing engineering, alternative energy, energy harvesting, advanced imaging technologies, and sensors.

Between 60 and 100 outstanding early career scientists and engineers particpate in each symposium. Sessions consist of presentations by speakers on leading edge research, emerging technologies, and opportunities for collaboration across science and engineering fields. The symposia foster interdisciplinary and international collaborations and serve as a reference point for many of the emerging frontiers in research and innovation in the U.S. Presentations from the U.S. FOE seminar will be posted on the NAE FOE web site.